Science and Mathematics Education Enhancement Programs

This three-year project will offer one-week summer institutes organized by the Woodrow Wilson Foundation to secondary school teachers in Purchase, New York, and the surrounding area. Each year a total of 105 teachers will participate in summer institutes in chemistry, physics, and mathematics and in follow-up activities during the academic year. In addition, four teachers will take part in an eight-week research experience in an industrial or academic laboratory. Substantial support is being contributed by the university, participating school districts, and local business and industry, and cost-sharing amounts to 32% of the NSF award.